MRI Consortium: Development of Instrumentation to Measure the Spin Precession Frequency in the Fermilab Muon g-2 Experiment

This collaborative award to the University of Washington and Cornell University funds the development of a calorimeter detector that would be used to measure the anomalous magnetic moment of the muon. This quantity is of fundamental interest because of discrepancies between a recent measurement and theoretical predictions of the standard model of particle physics. The magnetic moment of the muon will be measured with greatly increased precision. If the discrepancy is confirmed, it would imply the existence of new subatomic particles, so far undetected, and would fundamentally reshape our understanding of the world around us.